Research Initiation Award: A State-Space Approach for Multiple Objective Synthesis of Linear Controllers

Most control system design problems involve making tradeoffs among competing objectives. In this research we consider a synthesis problem that arises when the goal is to find a controller such that several design specifications are jointly feasible. The focus is on linear plants and controllers. We consider design specifications that may be quantified by norms on the closed loop maps. The aim is to develop a complete state-space theory for solving several multiple objective control problems, resulting from combining performance measures and robustness requirements of practical significance. Our formulation of the synthesis problem is significant because design specifications such as good disturbance rejection and tracking, guaranteed stability in the face of plant uncertainty, etc., can be taken into account simultaneously. Since a comprehensive theory for these problems does not exist, the potential yields of this research will enhance the current theoretical understanding of some fundamental tradeoffs in the design of control systems. Further, since the synthesis methodologies we may obtain capture better aspects of the design problem than existing methods (i.e. LQG, H-infinity, etc.), their use will result in a significant reduction of the time invested by the control engineer to get an acceptable controller design. The methods we plan to use are based on linear algebra and finite-dimensional convex optimization. We are motivated by the possibility of obtaining efficient numerical algorithms for controller synthesis, implementable in most computer systems.